Evaluation Of The Instructional Materials Development Implementation And Dissemination Sites In The Division Of Elementary, Secondary And Informal Education

Evaluation of the Instructional Materials Development Implementation And Dissemination Sites In The Division of Elementary, Secondary And Informal Education.